Parallel Computation Laboratory

Future improvements in computer performance will rely on parallel computing, creating a demand for programmers who can design and implement algorithms for parallel architectures. The Parallel Computation Laboratory to be created under this project will enable the institution to integrate parallelism into the curriculum over a three-year period, and will support an upper-division elective on parallel computation.The laboratory will be implemented using the Inmos transputer, a relatively low-cost processor designed to cooperate with other processors by exchanging messages over high-speed links. Sixteen transputers are housed in Computer Systems Architects' SuperSet Plus, a platform that enables up to four users to simultaneously use the transputers. Each user can specify a processor interconnection network. The SuperSet will be connected to a SUN 4/110 host and will be remotely accessible via a local area network.